Upgrade of 56kbs line to T1 (1.54 Mbs.) Connection to NSFNet

9302924 Adeyiga Hampton University requests support from NSF for an upgrade of its connection of its campus network to VERnet from a speed of 56,000 bits per second to one for 1.5 million bits per second. VERnet is the midlevel network located in the state of Virginia. VERnet will provide operations management and information services and it will give Hampton University a connection to the NSFNET, a high speed (1.5 - 45 million bits per second) National Backbone network. The University needs greater functionality and network speed to be able to access supercomputer, libraries, and make file transfers along with being able to implement a more reliable mail system. Students and faculty research will benefit from the link. This is also a unique opportunity for the school to explore innovative educational resources.